Workshop on the Role of the Laurentide Ice Sheet in the Climate System

This award is for support of a workshop on the role of the Laurentide Ice Sheet in the climate system. The interaction and relative importance of the ocean, atmosphere, and ice in the climate system during the last glacial cycle will be the focus of the workshop. A number of new and significant developments in research of ice-age climates, ice-sheet dynamics, and the geologic record of climate change indicate that ice sheets played a dynamically significant role in climate change of potentially global significance. The primary objective of the workshop is to coordinate multidisciplinary studies of the climate system in order to initiate data-model integration and model development.